Governance and the Geography of Interdependency in Emerging Transnational Regions

University of Washington The central objective of this research project is to examine the relationship between differing regional geographies of cross-border interdependency, their attendant patterns of transnational governance, and the implications of both for older forms of national governance. The intent is to focus on the question: does the emergence of quasi-autonomous transnational regions represent the erosion of governance or just its political-geographic reorganization? Using theories of regional agglomeration in part, a comparative approach is used to determine how transformations of governance relate to the economic geography of trade convergence, traded interdependencies and untraded interdependencies in two emerging transnational regions, Transmanche (French-English) and Cascadia (U.S.-Canada). The research will involve data analysis of trade flows, in-depth interviews with administrators and planners, and a questionnaire survey of businesses. The results will bring fieldwork results to bear on questions of the 'end of the nation-state' and the impacts of globalization.